Metropolitan Kansas City/Elementary Science Specialist

This Leadership Activities project will provide professional development for 90 leadership teachers who will become a cadre of Elementary Science Specialists over a period of three years. They will provide leadership for the improvement of elementary science education throughout metropolitan Kansas City, a bistate metropolitan area with 12 cooperating school districts at this time. The proposal is the product of a sustained, cooperative planning effort that has spanned more than one year. The project will include working with classroom teachers and with principals to enhance the quality and quantity of science education in elementary schools. The program features an innovative course of study integrating science content with instruction that is appropriate for elementary school classrooms. It includes workshops for principals, supervised internships in schools, and in-service activities conducted by the leadership teachers throughout the participating school districts. The program involves considerable support, planning, and cost-sharing from the cooperating school districts. This cooperation provides some unique opportunities to involve a variety of community institutions including the Kansas City Zoo, The National Energy Foundation, and the Science Pioneers. Careful evaluation is planned that will provide important feedback to the project directors, to the cooperating school districts, and to the teachers involved. This model for teacher enhancement may also serve as a prototype for the development of more appropriate approaches to the science preparation of preservice elementary teachers at the University of Missouri, Kansas City.